Advanced Membrane Technology Conference

PI: Escobar, Isabel C.
Proposal: 1607899
This proposal requests $49,000 to partially defray conference costs for up to 30 graduate
and post-doctoral students to participate in the Engineering Conferences International Meeting
on Advanced Membrane Technology VII in September 2016. The meeting will have 13-14 technical
sessions covering recent advances in membrane research, development and applications. Some
examples include the nexus of nanotechnology, biotechnology and membrane separations, as well
as wastewater reclamation, gas and liquid separations and purifications, and energy issues.
A poster session is also an integral part of the meeting. Supported students will be asked
to present at the poster session. The meeting will feature a number of internationally renowned
and up and coming researchers. The anticipated attendance for the meeting is 100 membrane
researchers from all parts of the world representing industry, government and academic facilities.
Membrane technology is an important part of the separation technology. Topics were selected
based on providing an update from the previous meeting, marking specific areas for special
attention, and showcasing recent advancements related to water production, the environment
and special needs. The conference will highlight the following four topics:
(1) Environmental engineering through sessions that will highlight the use of membranes to
remove emerging contaminants, such as endocrine disruptors and algal toxins (e.g. microcystin,
as the issues facing Lake Erie and numerous world countries). Another session will have presentations
on lowering membrane fouling.
(2) Sustainability through two sessions that will discuss sustainable water treatment, such
as water reclamation and recycling; and will discuss membranes for energy applications, such
saline water gradient.
(3) Advances in nanotechnology for membranes, which will highlight the use of metal nanoparticles,
carbon nanotubes, graphene and other nanomaterials for the improvement of membrane operation.
(4) Scalable nanomanufacturing of membranes, which will highlight the mechanisms that can
lead to failure during the scale up of nanocomposite membranes.
Given the scope of this meeting, its more intimate meeting structure and diverse internationally
renowned attendees, the ECI Advanced Membrane Technology VII Conference provides an exceptional
intellectual training opportunity for graduate students and young faculty.
The potential to improve advanced membrane technology rests on our continuing ability to harness
results from basic science and engineering, of the kind supported by